Embedded Systems and Software Engineering Outreach

The objective of this proposal is to facilitate outreach between the software
engineering and embedded systems research communities by providing travel support for
outstanding students of one community to participate at the flagship conference of the
other. The proposed travel stipend intends to improve the mutual awareness of the ACM
software engineering (SIGSOFT) and embedded systems (SIGBED) research
communities to the opportunities and challenges emerging in their research areas.

Supporting the crossover of ideas between these communities has been an important
goal. The outstanding scientist and recognized National leader in computer science
who has been working for this goal until his untimely death in 2004 has been Dr Frank
Anger, Deputy Director of the Division of Computing and Communication Foundations
in the Directorate of Computer and Information Science and Engineering (CISE) at the
National Science Foundation (NSF). The basic idea for this travel support has been
conceived in the spirit of his work and his legacy.